WORKSHOP: Scaling to New Heights, Pittsburgh, Pennsylvania, May 20-21, 2002

This award is to organize a workshop entitled "Scaling New Heights" to be held at the Pittsburgh Supercomputer Center on May 20 and 21, 2002. The NSF PACI leading-edge centers (NCSA, PSC, SDSC) together with the Center for Computational Sciences (ORNL) and NERSC, will jointly organize the workshop which will examine issues involved in scaling applications to thousands of processors.

The goal of this workshop is to examine practical mechanisms for scaling these applications to closely coupled high-end distributed memory architectures.